RIMI: Growth and Characterization of Photorefractive II-VI Ternary Semiconductor Crystals

9550605 Morgan The proposed research would investigate the optical and electronic properties of 2-6 semiconductors and the relationship of these properties to the photorefractive response. Specific objectives of this project are (1) to determine the effect of purification, crystal growth techniques and post-growth treatments on trap density, carrier transport properties, absorption coefficient and other properties relevant to the material's photorefractive performance, (2) to use selected transition metals as dopants in order to evaluate the relationship between dopant species and concentration, defect and transport properties and photorefractive properties, (3) to measure the time response of the photorefractive effect and its dependence on defect properties and (4) to study the effectiveness of studying the bandgap and other properties by alloying in order to optimize the material for use at a specific wavelength. The project will support 4 undergraduate and 2 graduate students. ***